Computability Theory

Lempp proposes research in both applied and pure computability
theory. In the former area, Lempp proposes to investigate the
computational complexity of models of uncountably categorical
first-order theories, and of Boolean algebras. He also propose to
study the proof-theoretic strength of combinatorial statements,
esp. variants of Ramsey's Theorem, in order to find new
proof-theoretic systems of weak second-order arithmetic. In the
latter, i.e., in pure computability theory, Lempp plans to reach
a better understanding of three important degree structures, the
computably enumerable Turing degrees, the enumeration degrees of
the Sigma^0_2-sets, and the Turing degrees of differences of
computably enumerable sets, by investigating their finite
substructures, in particular the embeddability of finite lattices
and extensions of embeddings of partial orders into these degree
structures.

Computability theory is the study of the theoretical limitations
of computation by machines, irrespective of limitations of bounds
on memory space or run time. It is thus in some sense the
theoretical cousin of complexity theory, an area of computer
science studying computability within given time or memory space
bounds. Typical results in computability theory show that certain
mathematical problems cannot be solved by any computer, no matter
how fast or how large. Up until the late 19th century,
mathematics was essentially algorithmic: If you solved a problem,
you could also give an effective procedure to find a
solution. However, in the late 19th century, it turned out that
many mathematical proofs could be done more abstractly and more
elegantly, at the expense of effectiveness. Suspicions about this
approach came to the front in the 1930's with the first
undecidability results, showing that this abstraction often led
to "non-algorithmic solutions". Lempp's research focuses on the
analysis of unsolvable problems, mainly in algebra and
combinatorics. Techniques and results in this area are often not
only of great theoretical interest, but also have practical
applications in computer science.